Fifth International Conference on Seismic Zonation

This award is for the Fifth International Conference on Seismic Zonation which is being organized by the Earthquake Engineering Research Institute, in cooperation with the French Association for Earthquake Engineering. The conference will provide a state-of-the-art assessment of the advances in seismic zonation from the perspective of the earth sciences, engineering, urban planning, social sciences and public policy. The conference will focus on useful applications of seismic zonation that have led to loss estimation and refined mitigation efforts related to the built environment, land use, and emergency preparedness. Gaps in knowledge will be identified and recommendations for future research will be developed.